Dowling College Robert Noyce Scholarsip Program

This project addresses the critical shortage of science and mathematics teachers in New York, and in particular in the Long Island and New York City area. The Dowling College Robert Noyce Scholarship Program provides scholarships for science and mathematics majors in the teacher training program, and has a particular emphasis on attracting minorities, underrepresented genders and persons with disabilities.

Proven recruitment strategies are conducted off-campus through visits both by faculty and Enrollment Services personnel at community colleges and college fairs, as well as mailings to targeted audiences. On-campus recruitment is carried out at semiannual Open Houses and Early Decision Scholarship Days. Selection is based on NSF Noyce Scholarship criteria as well as GPA, a personal essay, and interviews focusing on the commitment to fulfilling the post-graduate Noyce program requirements.

Every Noyce Scholar is paired with a faculty mentor who directs academic and personnel interventions if needed and encourages extra curricular involvement in research and internship opportunities, especially those that enhance preparation for teaching in high need school districts. This relationship continues as a support mechanism during the induction stage of the Noyce Scholar's career. Post-graduate activities include an annual four-session Professional Development Seminar Course, follow-up classroom observations and consultations.